Numerical Modeling of Coupled Ground & Surface Water Flow & Transport

The objective of this project is to develop advanced numerical methods
for modeling flow and transport processes in coupled surface
water/ground water systems. As the relevant processes, and spatial
and temporal scales, can strongly differ in the various subdomains of
a coupled hydrosystem, different modeling concepts must be chosen for
these subdomains. The PIs will investigate appropriate mechanisms for
coupling mass, momentum and species transport in ground water and surface
water regions. This will include mathematical formulation and
algorithmic and software tool development between different domains
and models. Efficient discretization techniques, based on finite
element technology developed by the PIs and adapted to the dominant
processes in each region, will be developed. The stability of
these methods will be analyzed, and a priori and a posteriori error
estimates will be derived. Time-stepping strategies for accurately
handling the different temporal scales within these flow and transport
domains will be studied, and fast and robust solution methods for the
resulting linear and nonlinear systems of equations will be developed.
Representative benchmark problems based on laboratory and field
experiments will be formulated and will be used to validate the
numerical methods. The resulting methodology will be implemented
within a parallel computing framework for distributed and grid
computing platforms.

Sustainable management and protection of water resources is one of the
key problems of the 21st century. Comprehensive, long-range water
resource management requires a careful study of the interaction of
ground water and surface water. Historically, ground water aquifers
and surface water bodies, such as streams, lakes and wetlands, have
been studied in isolation, without properly accounting for the
interactions between them. Recent data, however, collected in the
United States and abroad, give startling evidence of the effect
surface water and ground water systems have on each other. These
studies indicate, for example, that water contamination can easily be
transmitted from ground to surface water and vice versa. In many
cases, the precise location of initial contamination is irrelevant,
because the close proximity of ground and surface water can result in
both being contaminated. Advanced computer simulators are needed to
study and predict the movement of potentially harmful chemical species
within these complex environments. In this project, the PIs will
develop mathematical models and state-of-the-art computational
algorithms and technologies for simulating large-scale ground and
surface water systems. The project will involve the collaboration of
the PIs with researchers at government laboratories and state
agencies, and will include the training of graduate and undergraduate
students. The technology to be developed has potential application to
other areas, including thermal and chemical processing, biomedicine,
and sequestration of carbon dioxide from the atmosphere.